NSF VINES Virtual Office

The Verticals-enabling Intelligent Network Systems Virtual Office (VINES-VO) will strengthen the national research and development (R&D) ecosystem needed to accelerate innovation and translation of next-generation (NextG) telecommunications and computing technologies that support emerging industries and critical services, such as Artificial Intelligence (AI) infrastructure, advanced manufacturing, precision agriculture, intelligent transportation, telemedicine, advanced aerial mobility, public safety and disaster response. As NextG research and technology development become increasingly distributed across academia, industry, government, and international partners, effective coordination is essential to ensuring that discoveries are shared, understood, and positioned for accelerated real-world use. VINES-VO will manage community activities that connect VINES research and technology teams, industry, government agencies, international partners and other stakeholders across the NextG ecosystem to promote the exchange of knowledge, reduce collaboration barriers, and increase the visibility, impact and translational potential of innovations resulting from the VINES Program. The project will advance the national interest by promoting scientific progress, supporting technology development and demonstration, accelerating technology translation, strengthening U.S. competitiveness and leadership in telecommunications, and helping emerging innovations deliver broader societal and economic benefits.

The primary goal and scope of the VINES-VO will be to establish and operate a scalable coordination and collaboration framework for the National Science Foundation’s VINES awardees across two program tracks: Track 1 – Use-Inspired Fundamental Research, and Track 2 – Verticals-Driven Technology Development, Demonstration, and Translation. The VINES-VO will support VINES awardees and stakeholders, spanning industry, academia, non-profits, international partners and government, through program management, subject-matter expert and advisory board input, technical workshops, project coordination, digital collaboration tools, and technology translation activities. Core activities and methods will include regular project meetings, principal investigator workshops, technical webinars and seminars, demonstration coordination, structured collaboration opportunities, engagement with national and international research initiatives and testbeds, and creating a NextG research and technology translation ecosystem. A managed, role-based digital collaboration environment will provide awardees and stakeholders access to project information, research outputs, tools, progress tracking, and partnership opportunities while reducing administrative burden on awardees. By creating durable mechanisms for information sharing, project visibility, and cross-sector engagement, the VINES-VO will help connect use-inspired R&D with pathways toward impactful NextG technologies and vertical applications.